XXI International Lepton Photon 2003 Symposium; Batavia, IL; August 11-16, 2003

The proposal is a request for support to help cover the costs of organizing the XXI International Symposium on Lepton and Photon Interactions at High Energies, LP2003. It will take place from August 11-16, 2003 at Fermi National Accelerator Laboratory, Batavia, Illinois. The funds will be used to increase the participation of young U.S. scientists and physicists